Environmental Engineering Education Conference, August 3-6, 1996 at the University of Maine, Orono

9531086 Rock This is an award to support conduct of a conference to address issues of importance to the education of environmental engineers, a significant component of which involves conduct of research by university faculty with the assistance of students primarily at the graduate level. Session content addresses issues of importance in preparing graduates for environmental engineering practice. Sessions scheduled include consideration of the attributes expected of program graduates in terms the market for their services, educational approaches and curricula for meeting practitioner perceptions and needs, roles of practitioners in enhancing the content of curricula and the role of practitioners in influencing innovations in education of engineers for environmental engineering practice. The conference will be conducted at the University of Maine from August 3-6, 1996 by the Association of Environmental Engineering Professors under auspices of the University of Maine in joint sponsorship with the American Academy of Environmental Engineers. Results are expected to be used for program planning.